CISE Research Infrastructure: Optimization of Distributed and Networked Systems: A Spectrum of Techniques

EIA-0080123
Andrews, Gregory R.
University of Arizona

CISE Research Infrastructure: Optimization of Distributed and Networked Systems: A Spectrum of Techniques

This project is exploring a variety of complementary techniques for optimizing distributed and networked systems ---from client interfaces, through middleware and servers, to the communication infrastructure---and they examine a variety of optimization criteria---including time, space, power, quality of service, and utility.

Client-level projects are investigating ways to reduce power consumption and memory requirements, and ways to protect clients and mobile code from each other. The middleware projects are examining ways to support interactive visualization of geographical databases and ways to optimize evaluation of temporal queries. The server projects focus on optimizing the computational and I/O behavior of large, typically parallel server systems connected to many disks; applications include database servers
and parallel scientific programs. The final set of projects examines ways to optimize network performance; topics include routing and forwarding in high-speed networks, more efficient protocols for wireless networks and mobile computations, and a new approach called network-resident storage.